SGER: Science and Math Teachers Action Research Network

This project consists of two parallel and complementary sets of research studies. In the first, three groups of teachers, one of experienced physics teachers, a second of novice secondary school science teachers, and a third of middle school math and science teachers, will be engaged in collaborative action research on their own practice. In the second, a group of university researchers will be facilitating the teachers' research and investigating the ways in which they go about doing action research, as they generate and share knowledge in that process. The primary goals for the project are the improvement of practice and the generation of knowledge of teaching, action research, and teacher development. These will be accomplished by the establishment of the action research network, the engagement of teachers in collaborative action research, and the research done by the PI and staff on the teachers' research.